NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1997

Abstract DBI 9750002 Ichiro Matsumura This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1997. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Do enzymes evolve like antibodies?" and investigates the role of surface loops in the adaptive evolution of substrate specificity. This study tests the theory that the adaptive evolution of enzyme substrate specificity, like antibody maturation, occurs largely in surface loops. The evolutionary pathway between the betaglucuronidase and betagalactosidase of Escherichia coli will be recapitulated by randomly mutating selected beta-glucuronidase surface loops and screening for mutations that alter specificity.